Lasers and Plasma for Advanced Manufacrturing

This action joins the University of Michigan with the Industry/University Cooperative Research Center for Lasers and Plasma in Advanced Manufacturing in collaboration with the Old Dominion University. The center will develop a fundamental understanding of laser aided intelligent manufacturing to reduce lead-time for "concept to product" for manufacturing for U.S. industries by establishing the science base for laser materials processing along with test bed for process development. A major outcome will be education of university students and industrial personnel in both the basic and cross-disciplinary science and latest technology.